GOALI: Method of Tuning and Automatic Regulation for Injection Molding

9700288 Danai The objective of this GOALI research is to develop an efficient and robust method of tuning and regulation for injection molding processes, so that the desired quality of injection molded parts can be readily achieved and consistently ensured for commercial production. An important feature of this method will be its ability to select the machine inputs that will minimize production cost while satisfying the part quality constraints. The research will be conducted at both theoretical and applied levels with close interaction with industry partner. At the theoretical level: (1) the form of the I-0 model will be revised to allow for incorporation of qualitative measures of part properties; (2) process dynamics will be integrated in the I-0 model in order to enhance robustness in presence of process transients and external variations; and (3) an optimization strategy will be adopted in the virtual search method (VSM) to trade off product quality for reduced product costs. At the applied level, an extensive industrial collaboration program will be conducted at GE Plastics with other industry liaisons to identify the stringent requirements of production. The solutions obtained to the application requirements in this phase of research are expected to prepare VSM for wide area dissemination. This project will provide valuable leveraging to contribute fundamental knowledge in the area process controller for the injection molding industry